Adaptive Techniques Applied ot the Solution of the Hydro- dynamic Equations for Semiconductor Devices Simulations

This research is carried out in recognition of the fact that numerical simulations have increased in importance in almost all areas of engineering, although they may often be too expensive for routine applications in many areas of engineering and applied science. Recently, a new generation of algorithms that change form and structure during the computation procedure (adaptive) have been introduced in order to address issues of accuracy and efficiency of numerical simulations. Based on the initial success of adaptive algorithms in computational mechanics it is highly desirable that those schemes be extended to applications in other areas of engineering. One such area is semiconductor device modeling. One of the best "tools" for numerical simulation of charge transport in semiconductor devices is the hydrodynamic model, which has the advantage over the widely used drift-diffusion formalism of providing average carrier energy throughout the structure. Such information is essential in improving physically based models of semiconductor device phenomena (e.g. improved models for velocity overshoot, impact ionization, etc.) Unfortunately, the hydrodynamic approach may be quite expensive for routine device simulations when used in conjunction with conventional numerical algorithms. Here, adaptive algorithms will be employed in order to increase the efficiency and accuracy of the hydrodynamic model for device simulation. Solutions of the hydrodynamic equations may be quite sensitive to model parameters such as momentum and energy relaxation times. Promising numerical algorithms are more quickly adopted by the device modeling community when they are demonstrated using physically reasonable and reliable model. An important feature of the proposed program addresses the need for doing model develop in concert with algorithm development. This research program has been designed to bring together the backgrounds and talents of a numerical methods specialist and a semiconductor device engineer.